Gauge theory, 3-manifolds, and smooth 4-manifolds

DMS-0107792
Zoltan Szabo

The main theme of this project is the study of three-manifolds
and smooth four-manifolds by using gauge theory and symplectic geometry. The Principal Investigator proposes to study and
further develop a recent construction that give invariants
for closed oriented 3-manifolds and a related construction
that give invariants for smooth closed oriented 4-manifolds.
These constructions use handle decompositions and a version
of Lagrangian Floer-homology. The PI will also study
applications of these new techniques in 3 and 4-manifold
topology. In particular PI will study these invariants for three-manifolds that fiber over a circle and symplectic
4-manifolds.

Gauge theory is a very important technique in smooth
4-manifold theory. It involves the theory of Donaldson
invariants and Seiberg-Witten invariants. These invariants
are constructed by solving certain elliptic partial differential equations inspired by mathematical physics. Both constructions
have ramifications for three-manifolds as well, these
are related to solving the partial differential equations
over four-manifolds with a three-dimensional boundary.
In addition to studying these invariants the Principal
Investigator also proposes to study in detail a third
construction that involves holomorphic disks and a
decomposition of the manifold into elementary pieces.